Mechanisms of Human Color Vision

Color vision depends on the activity of certain photoreceptors called cone cells in the retina of the eye. Humans generally have three cone types, classified by the sensitivity of their absorbing pigment to short-, medium-, and long-wavelengths of light. The relative numbers of different cone types in the retina has been difficult to determine by direct methods, but is fundamental to our understanding of human visual sensitivity and color vision. This information is essential for any quantitative model of human color vision. In this project, Dr. Cicerone will continue her novel work using precise psychophysical techniques rather than anatomy to obtain numerical estimates of the relative and absolute numbers of different cone types. Tests for discrimination of colored target signals allow calculation of thresholds for color perception, which may differ in different parts of the visual field if different parts of the retina contain different ratios of cone types. Certain kinds of color blindness are found where only two kinds of cones are present in the retina; people with this trait are called dichromats, in contrast to the normal retina of trichromats. Colored stimuli can be used to test for the properties of mid- and long-wavelength sensitive cones in different parts of the human dichromatic and trichromatic retinas. She will use this information to constrain and extend models of human color vision, and these models will be important for both perceptual psychologists and neuroscientists.